Travel: Student Travel Grant for the 2026 IEEE ICC

This proposal seeks to fund US-based students to attend the 2026 IEEE International Conference on Communications (ICC), held in Glasgow, Scotland on May 24 - 28, 2026. IEEE ICC 2026, is a premier annual forum that attracts high-quality, forward-looking research contributions and provides a vibrant forum for technical and professional exchanges. IEEE ICC 2026, will expose selected students to cutting-edge developments in the field and enable interactions with world-leading researchers. The conference will feature presentations on works aligned with NSF priorities, including next-generation 6G and beyond wireless networks; security, trust, and privacy; generative AI and Large Language Model (LLM) empowered NextG networks; and quantum communications. Students will gain feedback on their ongoing work, broaden their academic perspectives, and build lasting professional connections.

This project supports students from US universities to attend the IEEE ICC 2026 conference in person. Students will have the opportunity to present their work and be exposed to state-of-the-art developments in the field. They will also have the opportunity to interact with peers from institutions worldwide, meet with senior researchers, and participate in discussions that are likely to shape the future of the field. This grant supports students who will substantially benefit from attending this conference but have limited travel funds.